Engineering Research Equipment: Fourier-Transform Infrared Spectrometer

9310931 Israel Wachs A Fourier-transform infrared spectrometer is being acquired to support research in catalysis. It will be used in studies of layered surface metal oxide, mixed metal oxide, sulfated metal oxide, sulfonic resin, and bimetallic catalysts. ***